PRESSS Coordination - Phase II

9307822 Priestley This project describes the administration base for continued coordination of the U.S. PRESSS project and is a direct extension of an existing coordination project. The project will provide: (l) Coordination of U.S. PRESSS activities, including organization of major coordination meetings of U.S. PRESSS researchers at six month intervals. (2) Coordination between U.S. and Japanese PRESSS activities, including the organization of an annual U.S./Japan coordination meeting. (3) Coordination between PRESSS and related research activities at NIST, ATLSS, and overseas. (4) Coordination between PRESSS and the funding agencies, including NSF, PCI and PCMAC. (5) Technology transfer of PRESSS results to Industry and the design profession in the form of technical reports and journal papers, and special purpose seminars. ***